Some Analytical Aspects of the Theory of Integrable Systems

The research project is focused on the analytical aspects of the theory of
integrable systems related to the Riemann-Hilbert and isomonodromy methods.
The problems under consideration include the asymptotic analysis of the
correlation functions of exactly solvable quantum field and statistical
mechanics models, the investigation of the double scaling limits in the
theory of orthogonal polynomials, the analysis of the integrable systems
describing the distribution functions of random matrix theory and random
permutations, and the global asymptotic analysis of the solutions of
integrable differential equations of the Painleve' and KdV types.

The theory of integrable systems is an expanding area which plays an
increasingly important role as one of the principal sources of new
analytical and algebraic ideas for many branches of modern mathematics and
theoretical physics. Simultaneously, it provides an efficient analytic tool
for the study of some of the fundamental mathematical models arising
in modern nonlinear science and technology. Specifically, the research
directions indicated above deal with the mathematical models which form
the theoretical basis for the following fields: condensed matter,
high energy and plasma physics, nonlinear hydrodynamics, and high-bit rate
telecommunication systems. A special attention in the project is given
to the analysis of the distributions of random matrix theory which govern
statistical properties of the large systems which do not obey the usual laws
of classical probability. This kind of systems appears in many different areas
of applied science and technology including heavy nuclei, polymer growth,
high-dimensional data analysis, and certain percolation processes.